Propositional Logic, Invariance Groups for Boolean Functions, and Parallel Higher Type Functionals

This project concentrates on propositional proof systems, Boolean complexity, and parallel/sequential computable functionals of higher types. The project specifically concerns: (1) upper and lower bounds for the number of symbols in proofs of various combinatorial statements for an extension of resolution called cutting planes, originating in operations research, as well as for related prepositional logics (logics of approximate reasoning or threshold logics, logics with the bi-conditional, with modular counting gates, etc.); (2) the relation between the parallel complexity of a language L and the algebraic structure of so-called invariance groups and extended invariance groups corresponding to L (structure of invariance groups of regular and context free languages, structure of extended invariance groups of fast parallel computable languages, invariance groups of monotonic versus non-monotonic boolean functions, relation to Krohn-Rhodes semi-group theory); and (3) the study of variants of the scheme of bounded primitive recursion applied to higher type functionals (functions whose arguments may be functions), and the study of parallel computable real valued functions. This research applies techniques from complexity theory, proof theory (mathematical logic), combinatorics and finite group theory. Initial experimental studies of extended invariance groups will be done using a parallel computer. The goal of this research is to increase our understanding of low level parallel complexity and associated logics with long term possible applications in logic programming, database update methods, VLSI design, and programming language design.